Interior-Point Methods in Artificial Neural Networks

This project will investigate the benefits of applying interior point techniques to learning algorithms in neural networks. The P.I. will attempt to show that by using the tools of interior point methods, a neural network algorithm such as back propagation can be improved both in learning time and quality of solution by optimizing the given methods of learning. As an introductory study, this proposal will investigate the effects on learning in BP by studying a method of analytical centers (Huard 1967, Sonnevend 1985, Renegar 1989). A similar approach was developed and investigated by Trafalis (1989), Abhyankar, Morin and Trafalis (1990) for multiobjective optimization problems. The proposed research would be conducted according to a three-part plan: (1) To consider piecewise linear convex activation functions. The findings of the research will then be generalized to cover more general activation functions (e.g. sigmoid functions); (2) To design, implement and computationally test the learning algorithms which were developed in phase one of the research; (3) To test the developed learning laws in vision problems related to medical applications in cancer diagnosis.